Spring Topology and Dynamical Systems Conference 2010

The Mississippi State University Department of Mathematics and Statistics will host the 44th Annual Spring Topology and Dynamical Systems Conference from Thursday March 18 through Saturday March 20, 2010. Planned are four parallel sessions in continuum theory, dynamical systems, general and set theoretic topology, and geometric group theory/geometric topology, and also 6 plenary talks and 12 semiplenary talks over the course of 3 days.

Topology and dynamics can be framed as the mathematics used for measuring and describing the notions of `shape' and `time evolution' in practically any context and on any scale. For example this can range from nanotechnology to the size and shape of the universe. Combining these ideas, if we begin with a simple shape and a simple process ( for example consider a taffy pulling machine), both describing and predicting the future output can become complicated.
Theoretical tools from topology and dynamics are indispensable for understanding such processes and systems, and it is to such theories that the conference is devoted.